Collaborative Research: The Weak Temperature Gradient Equations for Tropical Atmosphere Dynamics

In this project, meteorologists and applied mathematicians are
collaborating to study the "weak temperature gradient" (WTG) equations for
large-scale tropical atmospheric dynamics. The WTG equations form a
"balance model", or set of singular limit equations, asymptotically valid
in a parameter regime relevant to the tropical atmosphere. The WTG
equations are designed to facilitate study of key aspects of the tropical
climate problem, such as the large-scale dynamical roles of moist
convection and other diabatic processes. This focus is achieved by
eliminating other processes which can be present in solutions to the
primitive equations, such as gravity waves and baroclinic instability, in
the same way as gravity waves are eliminated in extratropical balance
models such as the quasi-geostrophic equations. One goal of this project
is to develop new mathematics by studying the WTG equations' properties.
Another goal is to solve the equations under geometries, boundary
conditions and forcings which represent idealizations of those relevant to
the real earth's climate, and then to study the sensitivity of the
solutions to key parameters. Achievement of these goals is expected to
lead to deeper understanding of both the real climate and more complex
mathematical models of it, such as general circulation models (GCMs).

The earth's climate system is notoriously complex. Many different
physical processes interact in a tangled web of feedbacks to produce the
dynamic and variable climate we observe. Unlike a laboratory science,
meteorology and oceanography are hindered by the impossibility of
controlled experiments which might allow the key mechanisms to be
conclusively revealed. We are stuck with the one planet on which we live
and cannot change its basic properties to see what happens. Consequently,
the science proceeds by observation and by a heavy reliance on numerical
simulation with GCMs, which are sophisticated computer programs run on the
most powerful computers available. These simulations offer the
possibility of a certain kind of controlled climate experiments: we can
create virtual earths on the computer, control their properties, and
observe their behavior with precision. One obvious limitation of this
approach is that the models are imperfect representations of reality. A
less obvious, but equally important problem is the models' complexity,
which both limits the number and type of simulations which can be done and
renders the results nearly as difficult to understand as the real climate
system. Because of these problems, there is a need to supplement
observational and GCM studies with theoretical studies using models that
are simpler than GCMs - if not simple enough to allow solution with pencil
and paper, then at least using very simple computer programs that run
quickly on a PC. To the extent that these simpler models have key
features in common with the real system, their simplicity allows a deeper
level of understanding of the basic dynamics of climate and leads to
explicit hypotheses that can be tested against observations and GCM
simulations. This project harnesses the physical insight of climate
scientists and the sophisticated methods of applied mathematicians to
develop and study simple models designed specifically to represent the
tropical atmospheric component of the earth's climate system.